Travel Support for The 6th Workshop on Diversity in Systems Research (Diversity '13)

The project supports 5 scholarships to enable attendance by students and junior faculty of the diversity workshop organized by the PI along with the upcoming SoSP conference. The workshop will be held on Nov 3 in Farmington, PA. The goal of the workshop is to strengthen the pipeline of systems students, providing them with advice and networking opportunities that they might not otherwise receive.